Acquisition of Core Instrumentation for Molecular and Cell Biology

This proposal requests funds to purchase equipment to support research in molecular and cell biology at Washington State University. The items of equipment requested are a tabletop ultracentrifuge and a phosphoimager. This equipment will support the research programs of five scientists representing four departments (Biochemistry, Genetics and Cell Biology, Botany, and Microbiology). The research interests of the user group are diverse, including membrane biochemistry, the biochemical and molecular basis for carbon and nitrogen allocation in plants, protein-DNA interactions regulating transcriptional expression of mammalian genes, mRNA degradation in eukaryotic cells, and genetic regulation of binding of the bacterium C. jejuni, a common cause of diarrheal disease, to the intestinal tract.